Nonlinear Optics in Single Crystal Waveguides of Organic Second and Third Order Optical Materials

The objective of this grant are: (i) preparation of single crystal films and waveguide microstructures of specific organic second and third order optical materials, ii) studies of the off-nonlinear optical studies will include phase matched second order optical waveguides and time and wavelength resolved nonlinear refractive index measurements for the third order optical waveguides. The role of two photon excitation in the enhancement of the third order nonlinearities will be investigated in detail. Specific conjugated polymers such as polydiacetylenes are known to have extremely large nonlinear refrafctive indices along with low absorption coefficients in the off-resonant domain. Such large nonlinearities are obtained only if the polymer chains are organized as a single crystal. Specific organic molecular crystals such as nitroanilines have very large and stable second order nonlinearities which can be utilized in many applications, (e.g., SHG of infrared diode lasers), if single crystal films and waveguides can be prepared. A method (shear method) that we have recently established will be utilized for the preparation of single crystal films of these optical materials. Subsequently specific waveguide microstructures will be prepared from the films. The nonlinear optical measurements in the films and waveguides will be performed using established procedures. As recent measurements have shown, single crystal polydiacetylene waveguides are highly promising for applications in all-optical switches and logic gates that will operate at the subpicosecond time scale. Similarly various other applications are expected of single crystal waveguides of organic second order optical materials. The research as proposed is important for fundamental understanding of the mechanisms of the nonlinearities and realizing practical applications of these materials.